POWRE: Development of a Collaboration to Study Nucleon Polarizabilities via Compton Scattering Utilizing the New FEL-Generated Gamma-Ray Beam at DFELL

The proposal will provide funding to establish a beginning collaboration between Idaho State University and Triangle Universities Nuclear Lab at a critical time in the PI's career. The new high intensity gamma ray source is based on Compton backscattering of the FEL photons generated by an electron bunch ion the storage ring with a second electron bunch to produce an intense beam of linearly polarized gamma rays. The new technology which will produce a gamma ray flux at least 1000 times as great as anything presently available will allow model independent determination of nucleon polarizabilities via Compton scattering. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.